DISSERTATION RESEARCH: Unraveling the Origin of Social Parasitism in Megalomyrmex Ants: A Phylogenetic Study Using Morphological and Molecular Characters

Social parasitism, the exploitation of a society by other social organisms, is a
widespread phenomenon that has evolved independently numerous times within
many social systems. The monophyletic Megalomyrmex genus is an excellent
system to investigate how parasitism evolves in a social society. Using an integrative
approach, phylogenic analysis will reveal the origins of social parasitism, while
behavioral, ecological, and venom alkaloid information will help distinguish the
characteristics necessary for social parasitism to evolve and be maintained. The
following questions will be investigated: 1) Did social parasitism evolve once in
the Megalomyrmex genus? 2) Did social parasitism arise from behaviors
related to a primarily predatory lifestyle?

Merit:
By gathering these data the Megalomyrmex system will be comparable with other
parasite systems, and will thus broaden our understanding of the evolutionary
processes associated with the onset and maintenance of host-parasite associations.

Impacts:
This project will continue to incorporate undergraduate mentorship and training.
Ongoing collaborations will strengthen ties between Brazilian and American
institutions while expediting and developing this research. In addition, voucher
specimens have and will be deposited at one domestic and five foreign museums.
These collaborations and associations will not only make the proposed research
feasible but will effectively disseminate scientific knowledge.